ITR/IM: Creating a Latin American Union Catalogue and Bibliography to 1850

The Center for Bibliographical Studies at the University of California,
Riverside, is creating a union catalog of Latin American imprints to
1851. Existing printed bibliographies are for the most part old and
incomplete or non-existent. The Center has keyed all the extant
bibliographies and catalogs it can identify that are within scope,
producing some over 85,000 separate entries. Under this grant the keyed
entries will be modifed to fit MARC standards, duplicate holdings
eliminated and holdings records consolidated forming an initial data base
of 60-70,000 records. Uniform library symbols will be created. The
resulting file will be mounted in the Research Libraries Information
Network for public access. The process of adding additional records from
machine-readable files submitted by participating libraries in North and
South America will begin, matching algorithms developed, and new holdings
and records as well as citations to microfilm facsimiles added. Scholars
will have access to a single source for identifying surviving imprints and
where they can be found. The file itself will be searchable across all
fields through Boolean searching. Libraries will be able to use the file
for copy cataloging and obtaining machine-readable records of their
holdings for loading into their online public catalogs.